CAREER: Sensor Assimilation for Micromanipulation

This research investigates the use of disparate sensing modalities within intelligent microassembly systems. Various microforce sensing technologies are being experimentally and theoretically investigated, and a framework for sensor assimilation is being developed. The assimilation framework is based on a real-time task representation that incorporates sensor models as an integral component of the task description. The result is an intelligent microassembly system that seamlessly assimilates disparate sensing modalities throughout complex microassembly tasks. Based on results obtained with microforce sensing, the project also develops and fabricates instrumented microgrippers for intelligent microparts handling. This research will aid in the development of complex hybrid MEMS devices in two ways; by enabling the microassembly of more complex MEMS prototypes; and in the development of automatic assembly machines for assembling and packaging future MEMS devices that require increasingly complex assembly strategies. An educational component of the project builds on the research component in three ways; in modifying traditional engineering courses; in developing new courses that stress interdisciplinary problem approaches; and in collaborating with a local manufacturing firm in order to develop short courses in advanced manufacturing technologies for practising engineers.